STTR Phase II: Laser Vapor Deposition for thin film functional polymers and nanocomposites

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This Small Business Technology Transfer Research (STTR) Phase II project seeks to commercialize an innovative technology for depositing thin films and heterostructures of functional polymers, functionalized nanoparticles and nanoparticle-loaded polymers. Laser vapor deposition (LVD - trademarked) can be used to increase efficiency and reduce cost of thin-film devices as varied as organic light emitting diodes (OLEDs), organic solar cells and polymer chemosensors. This project will prove that LVD can meet industrial production requirements by (a) performing scaling studies of the process-throughout versus laser power in various process configurations and (b) building a table-top mid-infrared laser prototype using nonlinear optical frequency conversion from a commercially available high-power near-infrared laser. This objective will be supported by thorough studies on the physical mechanism of laser-materials interaction under mid-infrared vibrational excitation. The outcome of this project will also provide the development roadmap for high power industrial lasers for materials processing applications in mid-infrared wavelength spectrum.

The broader impact/commercial potential from this technology will be the technique for mass production of thin-film organic optoelectronics devices. For example, the OLED is an energy-efficient display and solid-state lighting device. Widespread adoption of solid-state lighting products such as white-light OLEDs could cut the US consumption of electricity for lighting by 29%, while saving the nation's households about $125 billion in the process, according to the Department of Energy. It would also reduce America's dependence on foreign oil and reduce greenhouse gas emissions, thereby improving the environment. Furthermore, LVD will accelerate the penetration of organic electronics into the consumer space and create new applications such as flexible displays. Just as polymers have replaced metal in everything from children's toys to automobiles, polymers are revolutionizing electronics and optoelectronics by reducing costs and opening new markets for devices such as polymer electronics and nanostructured displays. In addition, the blueprint of table-top high-power lasers developed in this process will provide a new path into ultra-short-pulse laser materials processing applications in the near and mid-infrared.